Project LEAP: Learning Environmental Activities Pays

A $50,000 Planning Grant will be awarded to the American Association for the Advancement of Science (AAAS) to develop an environmental science education program that targets adult learners in literacy programs. The planning grant will support a survey of literacy agencies, a pilot program and a focus group evaluation. AAAS will first survey literacy programs across the U.S. to assess the need for science related programming. Using the results, they will then modify and pilot previously developed environmental science activities at the Learning Bank in Baltimore, a community literacy center. Participants will then take part in focus groups to determine the effectiveness of the materials used. The overall goal is to develop a program model that can be disseminated at literacy centers throughout the country.